Collaborative Case Applications

This project will implement a workstation laboratory where students can gain hands-on experience with state-of-the-art software with Computer Aided Software Engineering (CASE) tools. The CASE tools will be used in three required, upper level CIS classes: Systems Analysis, Systems Design, and Database Design. In these courses real development projects are used, for example, designing an inventory system for a manufacturing company. The students experience the complete development life cycle by beginning the analysis of the system in the Systems Analysis course and designing/implementing the system in the Systems Design and in the Database Design courses. Students will develop and/or work with data flow diagrams, entity relationships, input/output prototype/specifications, file/database structures, policies, procedures, structure charts, function point counts, objects, and object repositories. The multi-class project provides students with experience in project management, interpersonal skills and group dynamics.